Very Large-Scale Integration High Throughput Rate Architectures for Systolic Array Processors

The major objective of this research effort is to develop a pre- fabrication engineering model of a high throughput VLSI systolic array processing chip (or chip set) based on least-square (LS) QR decomposition algorithm. This chip is being developed for general systolic Kalman filtering applications. An immediate application is to improve the tracing accuracies and throughput currently achievable in commercial Global Position Systems (GPS) receivers. In Phase I, the feasibility of developing systolic array LS architectures for high throughput rate signal processors has been successfully demonstrated. The systolic array design in Phase II is based on the modified Fast Givens algorithm developed in Phase I. The novel algorithm-based fault- tolerant approach identified in Phase I is further developed to include fault-identification and automatic reconfiguration based on inherent parallel processing characteristics of the QR systolic arrays. Development of the pre-fabrication chip model requires determination of the following VLSI design technologies for systolic processors: dependence graph mapping of algorithms to architecture, partitioning of large size problems to fixed size architecture; tradeoffs on internal and I/O lines; and software simulation of data flow and computations. This Phase II research effort develops methodologies which can be extended to general VLSI systolic LS processors and thus allow easy future commercialization of this technology to other signal processing applications.